Using the Host/Guest Relationship in the Synthesis and Design of Inorganic Non Linear Optic Materials

The objective of this proposal is to use inclusion chemistry to synthesize and characterize electro-optic materials which can be fine tuned and switched as nanocomposites. The preliminary research has demonstrated our ability to define the compositional phase space of an extensive class of materials which have the same topology as one of the premier nonlinear optic crystals known, KTP. The phase space of a second inclusion structural family, ABCO4, is being explored and has been shown to contain members with optical windows to 0.2 um and large SHG coefficients. Reversible gas phase adsorption, guest/host interace chemistry, and solid state substitution chemistry are being used to modify electro-optic behavior with respect to SHG and phase matching. Exploratory research using a variety of synthetic techniques is proposed in our search for new nonlinear optic inclusion hosts. A second objective of this research is to examine the nonlinear optic response as a function of externally induced atomic displacements by applied electric field, temperature, and pressure. Exploratory synthesis into new structural types will make use of the structure/property relationships determined in the above studies.